A Large-Scale, Intelligent Three-Dimensional Microphone-Array Sound-Capture System

This is a joint project between Brown and Rutgers to build a large microphone array with associated processors for beam forming. Applications are direction finding, echo cancellation, and speaker differentiation in telconference systems, multimedia educational systems, and large conference centers. Groups of microphones share microphone modules that perform A/D conversion and low-level processing. The microphone modules are linked over a high speed serial network (possibly optical) to a multiprocessors signal processing system for the higher level processing. The resulting system is being evaluated in an experimental teleconferencing facility.